Nonlinear Stability and Instability of Fluid and Plasma Equilibria

The investigator studies the stability and instability of
equilibria in fluids and plasmas, focusing on the two-dimensional
Euler equation in fluids and on Vlasov systems in plasma physics
and stellar dynamics. He aims to develop general methods of
finding linearly growing modes (especially for asymmetric modes
and boundary modes), to investigate nonlinear stability under
sharp linear stability criteria and for non-monotonic equilibria
that cannot be handled by the usual energy-Casimir method, and to
establish nonlinear instability from linear instability when the
particle trajectory is non-integrable.

A plasma is a gas composed of particles, each carrying a
positive or negative electrical charge, with approximately equal
concentrations of each charge. Most of the universe is plasma;
examples include the solar wind, the ionosphere, galactic nebulae,
and comet tails. Plasmas also arise in physics and engineering,
for instance in nuclear fusion. The investigator studies the
stability and instability of equilibria in fluids and plasmas.
Mathematical advances here enhance our understanding of the
physical mechanisms that govern stability and instability, and so
can lead to better numerical methods for simulations of these
complex phenomena. Fluid stability is important in understanding
the mechanisms of ocean waves and the movements of the atmosphere
as well as in engineering applications. Questions of plasma
stability arise in areas as diverse as sunspots, fundamental
plasma physics, the design of fusion machines, and plasma display
devices.